Block Travel Grant for Participants from the U.S. to the Moriond Conference, January 21-28, 1995

9423193 A Block Travel Grant award covers expenses incidental to the participation of students and young scientists in the Moriond Workshop on Tests of Fundamental Laws in Physics on January 22-28, 1995 in Villars sur Ollon, Switzerland. The annual Moriond workshops provide an opportunity for close interaction among physicists in a number of disciplines whose common interests in general fundamental problems provide the theme of the meetings. The sessions are organized around presentations in diverse fields of physics - Dark matter in cosmology, Clocks, and Low-energy nuclear tests of fundamental laws. ***